Integrating Object-Orientation into Undergraduate Computer Science Curricula

In the past few years, object-oriented technology has become one of the dominant technologies in the computing industry. In a recent survey, it was reported that over 75% of the Fortune 100 companies have adopted object technology to some degree for their computing needs. This is in response to the increasing software maintenance cost and backlog that is so prevalent in the software industry. Because object-orientation is becoming one of the primary means for problem solving, the need to teach object orientation in undergraduate curriculum is growing. This project provides two 2-week summer workshops for faculty who do not have any formal training in the area of object-orientation. The objectives are to introduce object-oriented concepts and to demonstrate how to deliver effective courses and units on object-orientation. The major topics addressed in this workshop include (1) object-oriented analysis and design, (2) object-oriented programming, (3) object-oriented databases, (4) integrating object-orientation into computer science/information system curriculum, and (5) teaching object-orientation to undergraduates. The workshop includes lectures and laboratory sessions in which participants have hands-on exercises in each of the above main topics. Participants also plan a course or course unit utilizing object-oriented technology at their institutions during the subsequent academic year. The tools used in the workshops include inexpensive or free software that are easily obtainable by most universities and colleges.